Assessment of International Research and Development

This proposal describes a plan for study under International Technology Research Institute (ITRI) of Japanese and European R&D in nine technologies -- where focused attention could accelerate progress in the U.S. The detailed research will be done by expert panels that will analyze foreign literature, visit foreign laboratories, and present their findings in workshops in technical reports.//